Computer Science, Engineering and Engineering Technology Scholarships

This project is awarding Computer Science, Engineering and Engineering Technology Scholarships to full-time students who demonstrate both academic potential and financial need. A special effort is being made to attract academically talented students from underrepresented groups. The program is building on the success of the institution's Mathematics, Engineering, Science Achievement (MESA) engineering program. Scholars have access to tutoring and individualized advisement as well as the option of participating in a multi-level mentoring program designed to increase both the retention and graduation rates of STEM majors. This project is making an impact in undergraduate education in the region.